CAREER:Uptake, fate and transport of environmental nanoparticles: from atomistic simulations to membrane diagnostics

Violi, Angela
University of Michigan Ann Arbor
Proposal Number: 0644639

CAREER: Uptake, fate and transport of environmental nanoparticles: from
atomistic simulations to membrane diagnostics

The intellectual merit of this project revolves around a novel theoretical effort to explore the interaction of man-made carbon-based nanoparticles with biological structures such as membranes. Knowledge on the basic and critical issues of how such anthropogenic particles "fit in" and modify biological assemblies, whether they be in plant or animal, is still very limited.
This project is therefore devoted to providing some of this critically important environmental information through a highly synergistic scientific approach.